Time-Constrained Communication in Real-Time Systems With Point-to-Point Interconnection Topology

Ramanathan A major limitation of real-time distributed computing systems is that communication latency between tasks on different nodes can be large. This research is directed towards alleviating this limitation using three methods. First, algorithms for assigning deadlines to information transfers between tasks are being developed. Second, partitions of information transfers into messages are being investigated. Third, routing and delivery strategies are being developed. The result is a set of solutions which can be used to design real- time communications systems.